Support for International Ocean Science Activities Through SCOR

Support is provided for the international oceanographic activities of the Scientific Committee on Oceanic Research (SCOR) that are relevant to U.S. interests in marine sciences and the Division of Ocean Sciences. Support of these international activities through SCOR began in 1987. The SCOR provides an international, interdisciplinary, non-governmental focus for ocean research and makes it possible for national ocean science communities to (1) participate in international research projects, (2) identify important ocean science issues and create working groups to address the issues, and (3) participate in capacity-building activities (40% of SCOR national committees are based in developing countries). Funding in this request provides partial support for SCOR Working Group activities, and international projects such as International Ocean Carbon Coordination Project (IOCCP), Surface Ocean - Lower Atmosphere Study (SOLAS), Integrated Marine Biogeochemistry and Ecosystem Research (IMBER), and GEOTRACES. These activities also are supported by other international and national sponsors.

These major programs have origins in US and have turned to SCOR to provide a forum for international planning and coordination. SCOR's impact has and will continue to be evident in the standardization of measurement protocols, sharing of data, coordination of ship time, and the enlargement of field studies which would be impossible without international coordination.